Assessment of Lifeline Response and Recovery Performance Using Data from the 1987 Whittier Narrows Earthquake

The Whittier Narrows earthquake offers an opportunity to assess the impact that research conducted as a result of the 1971 San Fernando earthquake has had on the earthquake design and performance of lifelines. The San Fernando earthquake was a major turning point in the seismic design of these systems, and Los Angeles has had the opportunity to benefit from research conducted in this area. Therefore, collecting response and recovery data from the Whittier Narrows earthquake would not only allow the preservation of important but perishable data, but also an assessment of research application and effectiveness. The objectives of this proposed study are to (1) collect, review, and document lifeline system performance (i.e., response and recovery) data from the October 1, 1987 Whittier Narrows earthquake; (2) develop preliminary response and recovery models for different lifeline systems using data from the Whittier Narrows earthquake and the 1971 San Fernando earthquake; and (3) assess the impact that research in the lifelines area conducted after the 1971 San Fernando earthquake has had on the improvement of seismic design and emergency response and preparedness procedures for lifelines. Specific tasks that will be performed include (1) data collection and review; (2) interviews with lifeline personnel; (3) development of preliminary response and recovery models; (4) comparison of lifeline response and recovery performance during 1971 San Fernando earthquake and 1987 Whittier Narrows earthquake; and (5) assessment of impact of research conducted after 1971 San Fernando earthquake on seismic design and performance of lifelines.